Vesicle Pool Modulation by Serotonin and Long-Term Facilitation

Synapses are the points of communication between neurons. Alterations in their strength can critically affect the operations and functions of neural circuits in the brain. Many hormones and drugs affect synaptic strength. Sometimes they act by altering presynaptic calcium channels through which calcium ions enter to trigger the secretion of neurotransmitter, the substance one neuron releases in order to communicate with another at a synapse. But often neuromodulators act without affecting calcium channels in ways still not understood. Serotonin is a circulating hormone in crustaceans which strongly enhances transmission at neuromuscular synapses. Serotonin increases transmitter release without altering presynaptic levels of calcium concentration or increasing the influx of calcium into nerve terminals during action potentials. Just how serotonin regulates transmitter release is not known. Long-term facilitation (LTF) is a form of synaptic plasticity observed at crayfish neuromuscular junctions where prolonged neural activity results in an increase in transmitter release per action potential. It is not associated with any change in presynaptic resting calcium level or calcium influx during action potentials, and like serotonin's action, its effects are mediated by the presynaptic biochemical intermediate cyclic adenosine monophosphate (cAMP). It is not known what aspect of the secretory process is altered in LTF. Transmitter is stored in vesicles and released by their fusion with the presynaptic membrane during action potentials. Preliminary results suggest that serotonin acts at crayfish neuromuscular junctions to increase the supply of vesicles available for release. This preparation will be used to test this hypothesis, and also to develop procedures that could be used to assay other drugs that might enhance the size of the vesicle pool. It will also be determined whether vesicle pool size is altered during (LTF). In this project, a membrane labelin g fluorescent dye (FM1-43) will be used to label presynaptic vesicles and determine whether serotonin and LTF increase the number of available vesicles or the probability they are released by action potentials. A slowly developing depression of synaptic transmission due to exhaustion of the vesicles available for release will also be used to estimate the number of vesicles in the releasable pool and whether their number or their probability of release is increased by serotonin and LTF. Other experiments will test for changes in the rate of recovery of released vesicle membrane in serotonin and LTF, and for involvement of cytoskeletal proteins in vesicle availability and release during serotonin action and LTF. Finally, new cAMP-sensitive indicators will be used to measure changes in presynaptic levels of cAMP during serotonin action and LTF.